Compactorization of the University Herbarium and Jepson Herbarium, University of California at Berkeley

9319871 Mishler The Herbaria at the University of California, Berkeley house a botanical collection of international importance to research in biodiversity, ecology and systematics of plants. The collection, which is now divided across two locations in Berkeley, will be combined into a newly renovated Life Sciences Building. This support will allow placement of the collection cases on space saving compactor carriages, which will enhance collection growth and access by researchers and students. %%% This support will enable the housing of the University of California herbaria collections in compactorized units in a newly renovated facility on campus. The collections, an international resources for research and education in the biodiversity and ecology of plants, are now hosed in two geographically separate locations, one of which is off campus and therefore not readily accessible. The reintegration of the two collections on compactor carriages in one collection area will increase room for future growth and provide efficient access to students and researchers. ***